Forensic Analysis Services

The Acquisition Services Directorate (Department of the Interior Franchise Fund)agrees to provide to the National Science Foundation Office of Inspector General (NSF OIG), acquisition support services related to a task order against a GSA Schedule for analysis services.